Pacific Coast Undergraduate Mathematics Conference 2012

This award will support the Pacific Coast Undergraduate Mathematics Conference (PCUMC) which will be held in March of 2012 at the California Polytechnic Institute in Pomona, California. NSF funding will allow 350 undergraduate participants to attend the 2012 PCUMC.

The goals of the conference are to provide an opportunity for undergraduates to share their research and expository projects, provide a forum for students to learn more about graduate school and career options in the mathematical sciences, and to encourage the participation of undergraduate women and minorities, and students just beginning their undergraduate career, in the math community. The conference has been held every year since 2006, growing from 80 participants in 2006 to 330 participants in 2011. The prior conferences have received enthusiastic feedback from student and faculty participants and have been successful in engaging members of under-represented groups.